Engineering Research Equipment Grant: Automatic Light Scattering Goniometer and Photon Correlator for Colloidal Polymer Biochemical and Pharmaceutical Research

This engineering equipment project provides a quasi-elastic light scattering (QELS) device needed for five on-going research projects conducted by four faculty members in the areas of colloidal, polymer, biochemical and pharmaceutical research. The first (supported by DOE), deals with drag reduction in surfactant systems for use in district heating and district cooling systems. The second (supported by NSF through the Engineering Research Center at Ohio State and private industries) deals with microstructure formation in inhomogeneous crosslinking polymerizations. The third (supported by the State of Ohio Thomas Edison Program and private industries) deals with diffusion-controlled polymerizations in reactive processing. The fourth (which is currently being supported internally by Ohio State) deals with the formation of bioploymers and bioparticles in fermentation. The fifth (supported by private industries) deals with various drug delivery systems. The behavior of these systems strongly depends on molecular weight, particle size and particle shape in the submicron range. QELS measurements would provide this information accurately and efficiently, leading to more fundamental analyses of the underlying phenomena. The QELS apparatus allows the measurement of micellar size and shape and, therefore, the development of criteria of micelle size and shape needed for effective drag reduction along with criteria for surfactant chemical structures and solvent environments which provide these micellar structures. This will permit the selection of new, useful, drag reducing surfactant additives for both low temperature (40-55 degrees Fahrenheit) district cooling and high temperature (80 degrees Celsius and above) district heating systems. These systems conserve energy, reduce investment in small inefficient heating or cooling units, reduce pollution and reduce peak electricity loads on hot summer days. Microstructural materials, advanced polymers, composites, etc., are reshaping our society and are contributing to an improved standard of living. Understanding how microstructures are formed in materials and learning how to control the processes involved in their formation will make important contributions to materials design and manufacturing. Unsaturated polyester resins have shown remarkable growth in the automotive, housing, marine and electric/electronics industries and are the most widely used thermosets. The technology developed in this study could also be applied to other microstructures materials.